2011 NSF CMMI Engineering Research and Innovation Conference: Engineering Challenges to Energy Management and Sustainability; Atlanta, Georgia; January 4-7, 2011

This award provides funding for the Division of Civil, Mechanical and Manufacturing Innovation 2011 Grantees Conference. The conference will be held in Atlanta, Georgia, and the theme will be "Engineering Challenges to Energy Management and Sustainability." This conference will provide a venue for all Division grantees to meet their program officers and to report on their progress by presenting posters. It will also feature plenary and parallel session that help investigators better perform their research.

This conference has evolved into a major event, with over 1,000 attendees. It provides an opportunity for the Division's program officers to meet essentially all of their grantees, and it provides a venue for interaction between grantees. The conference also includes several events, such as a proposal writing workshop for young faculty and parallel session on topics such as ethics, to better prepare faculty for their careers. Student participation is a key feature of the conference, with attendance by over 200 students who also present posters featuring their work.